CSR --- SMA: Predictive Testing of System Software

Today's software systems suffer from poor reliability and security,
with software errors costing the U.S. economy upwards of $60 billion
annually. This situation is likely to get worse, as the complexity of
software systems increases without a matching increase in the
effectiveness of software quality tools and techniques. The situation
is particularly challenging for concurrent systems, which pose
significantly higher difficulties for software quality tools, yet are
becoming more widespread with the growing use of multicore machines.

Static analysis software-quality tools are very precise but do not
scale well to large codes. Testing is easy to use but for good
coverage requires extensive test suites. We propose to bridge the gap
between ad hoc testing and static analysis by combining them in a new
scalable technique called predictive testing. Predictive testing uses
static program analysis to maximize the effectiveness of a given
test-suite for finding in the testing stage bugs that could manifest
in real production runs. Although predictive testing tools use complex
static analysis and automated theorem proving techniques internally,
all of this complexity is hidden from the user by a testing usage
model. For this reason, we expect that such tools can be easily
integrated into existing software engineering processes and will be
usable even by unsophisticated developers.